Coalition for the Advancement of Minorities in Science and Engineering

An eight-member coalition of minority engineering organizations, committed to ensuring the participation of African Americans, American Indians and Hispanics in science and engineering will: o Conduct a qualitative and quantitative self-assessment of each organization's programs and services to determine what works and why and to use this as a basis for restructuring individual organizational activities and for developing a comprehensive agenda for the coalition; o Develop operating strategies and procedures for networking the strengths of individual organizations more effectively with one another and with existing NSF efforts, in particular the Alliances for Minority Participation and the Comprehensive Regional Centers for Minorities, to help these alliances and coalitions accomplish their objectives; o Define a leadership role for each organization that contributes cohesively to the coalition effort and details the modifications to be made by each organization to ensure optimum performance of assigned tasks and services; o Develop a comprehensive, long-term plan for the coalition which outlines the proposed activities and the operational framework, including any structural changes required of the individual organizations in order to accomplish the coalition's objectives.